Polyherdral and Graph Theoretic Methods in Discrete Optimization

The field of Combinatorial Optimization has applications throughout nearly every field of scientific and engineering interest. Progress towards faster and more robust ways of solving such problems has been steadily increasing, with occasional breakthroughs, often generated by Professors Balas and Cornuejols. New results on polyhedral and graph theoretic methods have recently been obtained. This proposal is to continue to seek ramifications of the new results, especially as they relate to packing and routing problems.